Quantum-QuBIC: Topological Quantum Computation

EIA-0130388
Zhenghan Wang
Indiana University Bloomington

Title: Topological Quantum Computation

The theory of quantum computation is being constructed from abstract study of topological properties of collective electron systems. One example is the dancing pattern of quasi-particles in fractional Quantum Hall effects. The dancing patterns of quasi-particles are described mathematically by braids. In this context, the Berry phase of the quasi-particles gives rise representations of braids. In mathematical terms, these are modular functors.

This project is using insights from modular functors to investigate the possibilities for physical realization of quantum computers. The chief advantage of topological quantum computation is physical error correction. The rich mathematical structure of modular functors is also employed to design new quantum algorithms. Topological Quantum Computation Numerical Laboratory is being established as an intermediate step towards the physical implementation of a real quantum computer based on the principles of modular functors. A lecture and seminar series at Indiana University is organized to training students. This cross-disciplinary project involves topology, condensed matter physics, and computer science.